Enhanced Instruction in Spectrophotometry

Improvements and expansion in the teaching of spectrophotometry had been limited by the small number of suitable instruments available in the Chemistry department. Acquisition of the nine spectrophotometers removed this deficiency. The instruments are being used by science students in a number of chemistry courses and by non-science and education students in courses of an interdisciplinary nature. The additional instruments are also permitting more extensive use of spectrophotometry in experiments conducted with area high school students and teachers. The grantee is matching the award from non-Federal sources.